Presidential Young Investigator Award

The proposed research involves computer simulation of the interaction between Alfven waves and nonlinear kinetic processes in the auroral acceleration region; computer simulation of fast magneto-hydrodynamic dynamos.